Using Pyramided Resistant Cotton Isolines to Identify Genes Active in Defense

The project goal is to identify genes whose induction is necessary for an
effective hypersensitive disease resistance response in cotton. Two
valuable plant resources are available for this work: Im216, an Upland
cotton line whose level and breadth of resistance to bacterial blight are
exceptional, and a set of near-isogenic cotton lines (isolines) possessing
three individual, race-specific B genes for bacterial blight resistance in
combinations of 0, 1, 2, and 3 genes (a gene pyramid). Also, a subtracted,
normalized cDNA library enriched in sequences that are induced during the
hypersensitive response of Im216 to Xanthomonas campestris pv. malvacearum
(Xcm) has been prepared. The first objective is to prepare a similar cDNA
library from the pyramided isoline with 3 B genes and to isolate from the
two libraries a set of 500-1000 distinct clones of genes that are induced
by Xcm race 1, which has at least one avirulence gene that is recognized by
each of the B genes in these lines. The second objective is to array the
chosen cDNAs and screen them with RNA-derived probes prepared from
inoculated plants to identify genes that are induced during the
hypersensitive responses elicited by Xcm race 1. Since Im216 and the
pyramided isoline each have two B genes that are absent from the other
line, results will show whether there are genes whose induction is
regulated by specific B genes. Results will also identify genes whose
induction is triggered by all three individual B genes of the isoline
pyramid and genes whose quickness of induction correlates with the number
of B genes in a given cotton line. The third objective is to isolate and
sequence full-length cDNA clones of genes that meet one or more of the
following criteria: (i) induced by all B genes, (ii) quickness of
expression correlates with level of resistance, (iii) deduced protein
sequence and time of induction suggest they code for enzymes of phytoalexin
biosynthesis. This set of genes will be available as a resource to the
scientific community. Inducible resistance responses are the most
economical defense that is known against plant disease. They require no
application of agrichemicals. They cost the plant little energy, since the
responses are produced only when and where an infection occurs. They are
relatively safe, since anti-microbial substances accumulate mainly near
infection sites and are non-persistent.